TC: Small:Automata Based String Analysis for Detecting Vulnerabilities in Web Applications

Web applications contain numerous vulnerabilities that can be exploited
by attackers to gain unauthorized access to confidential information and
to manipulate sensitive data. Many of these vulnerabilities are due to
inadequate manipulation of string variables. String analysis, a technique
that captures the string values that a certain variable might hold at a
particular program point, can be used to identify such flaws. In this
project, novel and precise string analysis techniques will be developed
using an automata-based approach that represents possible values of a
string variable at a program point as an automaton. Techniques that
support path-sensitivity and that enable precise analysis of loops using
automata-based widening operations will be developed. Basic string analysis
techniques will be extended to a composite analysis where relationships among
string variables and other types of variables can be automatically discovered
and analyzed. The precision of string analysis plays a central role for
obtaining good results with static vulnerability detection tools. The
precise string analysis techniques developed in this project will enable
analysis of programs that cannot be analyzed with existing techniques. The
results of these improved string analysis techniques will lead to novel
software security solutions and detection of novel types of vulnerabilities.